Instrument Acquisition for Ultrafast Spectroscopy and Imaging

This MRI award provides funds for the purchase of three instruments designed to strengthen the capabilities of the institution in the applications of an existing femtosecond pulse system to optical imaging and spectroscopy. The instrumentation will directly impact the projects of graduate students and postdocs and offer opportunities for advanced-level training in ultrafast optics projects for undergraduates in an educational environment with a large population of underrepresented groups.